Development of Web-enabled Informatics Platform for Machinery Prognostics

This is a collaborative research project between the Engineering Research Center for Reconfigurable Machining Systems (RmS) at the University of Michigan and the Center for Intelligent Maintenance Systems (IMS) at the University of Wisconsin at Milwaukee. The objective of this research is to develop a methodology of web-based informatics platform toenable an implementation of remote monitoring and assessment of production machinery in internet-augmented reconfigurable manufacturing environment. The methodology will address the underlying issues in correlating machine condition and manufacturing process data into predictable and usable machine health and performance over time.